Postdoctoral Research Fellowships in Chemistry

Dr. Dahv A.V. Kliner has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Kliner's doctoral degree was from Stanford University under the supervision of Professor Richard Zare. Dr. Kliner intends to continue research at the University of Minnesota under the sponsorship of Professor Paul Barbara. Dr. Kliner's area of postdoctoral research will be ultrafast spectroscopic investigations of liquid-phase phenomena. Longer term, he plans to study the liquid-liquid interface by optical second harmonic generation and sum-frequency generation. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.